Young Scholars Computation in the Sciences Program

Parkland College's "Young Scholars Computation in the Sciences" program will have 30 bright, highly motivated students in an intensive three week exposure to up-to-the-minute scientific computer applications. During the first week, presentations will be made by scientists at the National Center for Supercomputing Applications (NCSA), faculty from the University of Illinois and Parkland College, and local business persons whose companies are built around computer applications. The students will (1) learn about how the Center has been helping may scientific fields with Cray Supercomputers, (2) learn about expanding fields such as computer simulations and visualizations, artificial intelligence and algorithm development, (3) learn how mathematicians, physicists, astronomers, astrophysicists, chemists and engineers are using scientific workstations such as those from Sun and Apollo, (4) see demonstrations and have hands-on experience with a variety of computers. During the last two weeks, the Program will provide student assistantships. Each student will be matched with a faculty preceptor whose expertise is a field of interest to the student. The pair will devise a project utilizing computational resources at Parkland College and complete it in the two week period.